Active Learning Laboratory for Medical Device Product Design and Manufacturing

Engineering - Other (59)

To respond to the increasing demand for novel, more functional, safer, and cost effective medical devices for the US healthcare industry an active learning laboratory is being developed for engineering students. This project focuses on significantly enhancing the design of medical devices by creating an active learning laboratory in which students can experience the stages of product development from design to manufacturing in a hands-on-manner. The active learning laboratory will impact New Product Development and Manufacturing Processes courses. This innovative course-laboratory integration provides an excellent opportunity for students to learn the fundamental principles of design and manufacturing while recognizing their impact in the medical device industry and society as a whole.